Intracratonic Basins, Proterozoic Layered Complexes, and Fluids in the Crust: A Three Component Program of COCORP Deep Seismic Reflection Research

This award provides for a focused program of continental deep seismic reflection research involving Cornell personnel and outside investigators. This program includes: 1) Acquisition of ultradeep combined vibroseis/dynamite seismic reflection profiles i eastern Montana and North Dakota, as part of a cooperative program with LITHOPROBE to study the Williston intracratonic basin and underlying Trans-Hudson orogen. 2) Acquisition of a combined P and S wave expanding spread profile across the Surrency "bright spot" in southeastern Georgia to determine its seismic attributes, and assess the possibility that deep crustal bright spots originate from trapped fluids. The proposed field program takes advantage of a special opportunity available to COCORP to use an 850-channel, SGR (Seismic Group Recorder) equipped, research seismic reflection crew. Amoco Production Company is offering to lend the hardware for this crew to COCORP free of cost for these studies. The advanced capabilities of this crew will allow the acquisition of greatly more sophisticated data than in the past, at a cost per mile that is actually less than that of previous surveys.